American Museum of Natural History ASCEND Project

AMNH ASCEND is a new model afterschool program of the American Museum of Natural History in New York City. AMNH ASCEND focuses on the legal, ethical, social and cultural implications of new discoveries in genetics. Eighty New York City high school students will be involved in a two-year program that includes a series of courses, hands-on activities, laboratory experiences, field trips, career development opportunities and educational support. In the first year students will participate in seven-week laboratory courses on genomic technology followed in the second year by a research experience in genomics at the Museum. The project is a collaboration of AMNH with AAAS, Mount Sinai School of Medicine, the City University of New York and the New York City Board of Education.